Multimedia ATM Network for Computer and Communications Research

This award is to support research infrastructure necessary for multimedia collaborative research. The project involves the development of a network of multi-media workstations to be used in collaborative research in education and computer science. The research topics explored include protocol design, network interface design, congestion control, advanced user interface design, applications to education, distributed computing research, and computer visualization.